Crustal Structure of Strike-slip Fault Systems from a down-plunge section in the eastern Chugach Mountains, Alaska

Near-surface fault patterns of strike-slip systems are now reasonably well understood, in
large part because of extensive societal interest (seismic hazard) and a wealth of
subsurface information obtained from petroleum exploration. What happens to these
faults at depth, however, is poorly understood. One approach to resolve these questions
is geophysical imaging, but these studies are expensive and typically ambiguous because
of imaging problems of structures ranging from low to high angle in crystalline rocks that
often lack sufficient variation in physical properties for clear imaging. A much higher
resolution technique to resolve these issues is to examine well-exposed down-plunge
sections of strike-slip shear zones. Such a structure exists in eastern Chugach Mountains
of southern Alaska, and this project proposes to examine this structure in detail to
investigate the three-dimensional architecture of strike-slip systems at mid to lower
crustal depths. Previous NSF funded research by the PI and V.B. Sisson has documented
the structural geometry of the lower and upper portions of the system, but a mid-crustal
portion of the system has not been examined in detail. In light of recent theoretical
developments (e.g. Teyssier et al., in press) the PI's initial conclusions require re-evaluation because the classic hypothesis of steep shear zones penetrating through the crustal column predicts a different geometry than a crustal column in which the upper and lower crust are detached along a broad zone of distributed flow. This project will test these alternative predictions through a combination of field structural studies, kinematic analyses (finite and incremental strain, shear-sense determination, and strain path information through growth fibers and development of quartz LPO's).